Polymer Interactions at the Solution Surface

Polymer Interactions at the Solution Surface: This award recommendation is made under the U.S.-Industrialized Countries Program for the Exchange of Scientists and Engineers, 1987/1988 Competition. The program is designed to enable U.S. scientists and engineers to conduct long-term research at research institutions in the industrialized countries of Western Europe as well as Japan, Australia and New Zealand. Exchange awards provide opportunities for the conduct of joint research and the utilization of unique or complementary facilities, expertise and experimental conditions in foreign countries. Awards are selected on the basis of scientific criteria relevant to his/her field of science, the prospective potential of the applicants for professional growth, as well as criteria relevant to the furthering of international cooperation in science and engineering. The program is particularly directed to scientists and engineers who are embarking on their research careers. This research proposal will address the experimental determination of the surface density profile and transverse radius of gyration for a polymer in solution. The methods to be used are x-ray fluorescence and in-plane small angle x-ray scattering under conditions of total external reflection. The project is under the direction of Dr. Scott William Barton, Department of Chemistry, University of Chicago, Chicago IL 60637, U.S.A., and Professors F. Rondelez and J.P. Badiali, CNRS, Groupe de Recherche Macelin-Berthelot, 75231, Paris, France. This award recommendation provides funds to cover, as appropriate, international travel, local travel abroad, stipend, dependents allowance, if applicable, language training, if required, and a flat administrative allowance of $250 for the U.S. home institution.